2009 Waterman Award

The National Science Foundation (NSF) is proud to announce that 34-year-old David Charbonneau, currently the Thomas D. Cabot Associate Professor of Astronomy at Harvard University, will receive its 2009 Alan T. Waterman Award. Discover Magazine's 2007 Scientist of the Year, Charbonneau's research focuses on the development of novel techniques for the detection and characterization of planets orbiting nearby Sun-like stars--extra-solar planets, also known as exoplanets.

The annual Waterman award recognizes an outstanding young researcher in any field of science or engineering supported by NSF. Candidates may not be more than 35 years old, or seven years beyond receiving a doctorate, and must stand out for their individual achievements. In addition to a medal, the awardee receives a grant of $500,000 over a 3-year period for scientific research or advanced study in their field.

Dr. Charbonneau is a member of the NASA Kepler Team and is currently leading the NSF-funded MEarth Project. Each of these projects aims to detect Earth-like planets that might be suitable abodes for life beyond the Solar system. Charbonneau earned his doctorate in astronomy from Harvard University and his undergraduate degree in math and physics from the University of Toronto.

In addition to winning the NSF's top award, Charbonneau has been awarded many distinctions through the years. In 2004, the Astronomical Society of the Pacific awarded him the Robert J. Trumpler Award for his graduate thesis entitled "Shadows and Reflections of Extrasolar Planets." He was recently named an Alfred P. Sloan Research Fellow (2006-2011), and awarded a David and Lucile Packard Fellowship for Science and Engineering (2006-2008), and the NASA Exceptional Scientific Achievement Medal (2006).